Full Option Science System - FOSS

The Center for Multisensory Learning of the Lawrence Hall of Science, with this Full Option Science System (FOSS), will provide, for grades 3- 6, a collection of multisensory, laboratory-based science activities. Some of these will be products of new development, and some will be from the 1986 FOSS Pilot project, which received National Science Foundation funding. The FOSS Project will produce five products that will be developed with the cooperation of Ohaus Scale Corporation, who will bring the FOSS Program to the market after the third project year. The products will include sixteen modules of laboratory activities; a Materials Assembly Procedures document (to help teachers gather equipment for the activities); a set of correlation tables to assist with the integration of FOSS activities into frameworks, with textbooks, and with other hands-on resources; student laboratory equipment; and student worksheets and instruction sheets. Lawrence F. Lowery, the Principal Investigator, will have the support of his Lawrence Hall of Science staff, and will work closely with local school districts (including Mount Diablo and Vallejo Unified School Districts), and with the nationally-established Ohaus Scale Corporation. Ohaus Scale Corporation and other participants in the project will provide matching support in the amount of $2,396,395. This proposal was submitted in response to the Program Solicitation, "Programs for Elementary School Science Instruction II," which encourages "troika" partnerships among publishers, school systems, and scientists/science educators.